Properties of Magnetic Viscosity

Viscous remanent magnetization (VRM) is a remanent magnetization that
is inexorably acquired during exposure to ambient magnetic fields.
In nature, VRM is a secondary overprint resulting from the
geomagnetic field. This VRM generally constitutes undesirable noise
in paleomagnetism. Despite its ubiquity, VRM still presents great
difficulty in paleomagnetic interpretation. In particular,
properties of VRM vary substantially as experimental conditions
change. As a result, it is dangerous to generalize the outcome of
individual investigations in the laboratory to the NRM of
paleomagnetic specimens. The investigators therefore propose a
systematic experimental and theoretical approach that intends to
explore fundamental behavior of VRM using well-defined natural and
synthetic samples. Properties of pre-history, temperature, and
time-dependence of VRM will be examined. They will monitor changes
in the magnetic remanence vector as well as the demagnetization
characteristics of VRM. In addition, experiments will be performed
at elevated temperatures up to 300C to characterize properties of
thermoviscous remanent magnetization (TVRM). Given the prevalence of
TVRM/VRM in nature, these investigations will pave the way for a
much more complete characterization of VRM and its affects on the
determination of past geomagnetic field vectors.